STREAMS-Supporting Talented and Remarkable Environmental And Marine Science students

Thirty-nine undergraduates and four graduate students are receiving scholarships ranging in duration from one to four years. The scholars will be enrolling in either the Environmental Science and Policy Program at the University of South Florida's St. Petersburg campus or in the College of Marine Science on the Tampa campus. An emphasis is being placed on recruiting women and members of underrepresented minority groups into these fields. A wide variety of student support services are being made available to the scholars including assistance with preparation for the Graduate Record Examination and mentoring activities designed to aid the students in transitioning to graduate school.